Microphysical Studies of Precipitation Using the Advanced, Polarimetric DFVLR Radar

The polarization characteristics of electromagnetic energy scattered from cloud and precipitation particles (hydrometeors) are dependent, among other factors, on the polarization of the incident radiation and the shape, size and phase (water/ice) of the hydrometeors. With polarimetric radar the polarization of the transmitted energy is controlled and the polarization characteristics of the energy scattered back to the radar are accurately measured. While still in its infancy, polarimetric radar techniques hold great promise for providing improved measurements of rainfall, and the shape, orientation, phase and spectra of hydrometeors. The most advanced polarimetric radar in the world is owned and operated by the Deutsche Forschung und Versuchanstalt fur Luft und Raumfahrt (DFVLR) in Oberpfaffenhofen, FDR. This research focuses on using the (DFVLR) radar in conjunction with research aircraft from DFVLR and the National Center for Atmospheric Research and numerical models in a microphysical study of springtime convective and wintertime stratiform clouds. The convective cloud studies will emphasize cloud particle characteristics during the early development of precipitation and also the characteristics of precipitation particles and the role they play in the formation of downdrafts. The stratiform study will concentrate on the ability of polarization techniques to distinguish between different types of ice and liquid water particles.